CyberAI Innovation: Modernizing IoT/Edge Cybersecurity Education for the Embodied AI Era through Experiential Learning and Research

The rapid growth of embodied artificial intelligence (AI) and the Internet of Things (IoT) is transforming unmanned aerial vehicles, autonomous vehicles, robots, and other smart devices. These systems are increasingly expected to deploy foundation models (FMs) at the network edge to support intelligent decision-making across a broad range of tasks. However, integrating FMs into resource-constrained IoT and edge devices introduces substantial cybersecurity and system-design challenges. Current undergraduate and graduate curricula provide limited opportunities for students to develop interdisciplinary knowledge and practical skills at the intersection of embodied AI, cybersecurity, and IoT/edge computing. This project will address these gaps by modernizing IoT and edge cybersecurity education and providing student-centered learning, training, and research experiences focused on deploying, optimizing, and securing FMs at the edge.

This project will modernize cybersecurity curricula to prepare the U.S. workforce to design and secure IoT and edge networks and devices that incorporate foundation models in the embodied AI era. The project will teach foundation models for students at different educational levels by developing cutting-edge learning materials on deploying, optimizing, and securing these models on IoT and edge platforms. It will create structured modules that provide students with advanced research and experiential-learning opportunities in foundation-model-enabled cyber analytics at the edge. The project will also develop innovative training materials on secure kernels and system architectures for edge-deployed foundation models. Project outcomes will be broadly disseminated through a new textbook, hands-on laboratories with complementary virtual-machine-based tools, training modules, workshops, and a cybersecurity competition.

This project is supported by the CyberAICorps Scholarship for Service (CyberAI SFS) program which funds proposals to increase national capacity to educate and train professionals in Artificial Intelligence (AI) or Cybersecurity, and to support their placement and retention in the CyberAI mission of government organizations. The Scholarship Track funds academic institutions to award scholarships to students in exchange for their government service. The Innovation Track seeks transformative education proposals in the areas of AI, cybersecurity, or the integration of AI and cybersecurity.